MRI: Acquisition of a LC-High Resolution Mass Spectrometer for Characterization of Environmental Organic Contaminants

Pollution discharged by industrial processes impacts human health and the health of ecosystems, and mitigating their effects requires considerable cost in time, effort, and dollars. This project will use advanced instrumentation to characterize contaminants in the environment and biological systems, enabling the design of appropriate mitigation strategies. It will support undergraduate, graduate, and professional education and training in environmental and analytical chemistry, environmental engineering, environmental health, and data science; and (3) foster new collaboration and community engagement opportunities, especially with the regional Native American communities, local and state government agencies, and industries impacting stormwater quality. UW-Tacoma is a primarily undergraduate institution, a non-PhD granting institution, an urban serving, a Carnegie community engaged, and an Asian American and Native American Pacific Islander Serving Institution. It has a student body comprised of many underrepresented minorities, veterans, and first-generation college students.

The system to be acquired is a Liquid Chromatograph-High Resolution Mass Spectrometer, specifically an Agilent 6546 UPLC-QTOF-HRMS instrument. The instrument will be used to understand and improve management of various forms of pollution, especially for stormwater and roadway systems, innovative treatment materials development, ecotoxicology and bioassay development, and water disinfection. For example, the instrument will be used to identify toxic transformation products from stormwater and quantify sources. Another use is to study the oxidation of persistent organic compounds in urban stormwater using ferrate-coated sand media and PFAS defluorination. Yet another study focuses on the fate of organic pollutants in the aquatic environment and their occurrence and impacts in the marine environment. With so many potential environmental pollutants, high throughput, analytical capacity, and reliability are critical limiting factors to research effectiveness. Because of the richness, depth and breadth of the data generated, screening techniques employing high resolution mass spectrometry have now become key methodologies for environmental chemistry and engineering studies.